CAREER: Default Bayesian Methods for Nonparametric Problems

DEFAULT BAYESIAN METHODS FOR NONPARAMETRIC PROBLEMS

Statistical models for complex data often contain one or more
infinite-dimensional parameters such as a probability density, a
regression function, or the transition density of a Markov
process. The rapid development of innovative Monte-Carlo schemes
in the last decade makes it possible to compute Bayes
procedures in these complex problems. However, because of the high
dimensionality, it is seldom possible to completely elicit a prior
subjectively from the available information. What is needed is a
general strategy for constructing priors for infinite-dimensional
parameters that incorporates available prior information, such as
smoothness (differentiability) or shape (monotonicity, convexity,
unimodality) of a regression function or density function.
Ideally, the constructed prior should be tested in the given
problem to avoid possible pitfalls in estimation. Large-sample
properties such as consistency and rate of convergence are
well-respected benchmark test criteria. In this research the
investigator constructs prior distributions for select
problems using a default approach, devises suitable algorithms for
computation of the posterior, develops software for computation,
investigates the large sample behavior of the resulting procedures,
supports the theory and methods via simulation studies with
moderately large samples, and applies the new methods to several
interesting data sets. The research provides Bayesian
methodologists with a catalog of priors with known performance
properties, thereby facilitating the application of Bayes methods
in other models with high-dimensional parameters.

Modern statistical models for data in a wide variety of
applications, such as data mining, image analysis, biometrics,
biostatistics, bioinformatics, signal processing, and finance,
often depend on high- or infinite-dimensional parameters such as
survival distributions, probability densities, regression
functions, transition densities of Markov chains, and so on. Successful
analysis of such data presents challenges not found in the
analysis of finite-parameter models, and requires the development
of new statistical theory, methods and software. A non-subjective
Bayesian method retains the advantages of the Bayesian paradigm
without requiring a subjective prior elicitation. In this
research the investigator develops the theory, methods, and
computational algorithms for implementing default Bayesian analyses of
complex statistical models depending on infinite-dimensional
parameters. The research is disseminated through the teaching
of advanced courses and via the usual scientific channels of
publications and seminars. The research provides new
data-analytic tools for solving problems arising in diverse
fields. Useful priors with known performance are cataloged
and user friendly software is developed for ready applications
to diverse fields. Thus the research has a major impact on the
conduct of science in a number of highly-relevant
application areas.